International Symposium on Boundary Element Methods; Boulder, Colorado

This grant is to assist in the support of an international boundary element symposium (IABEM-92, International Symposium on Boundary Element Methods) to be held August 3-6, 1992, at the University of Colorado at Boulder. The aim of the symposium is to appraise the state-of-the-art and set directions for new research in the field of boundary element methods, especially for large-scale analysis. It will facilitate a dialogue between engineers and scientists working in a variety of technological fields that employ boundary element methods. The conference will result in an authoritative high quality proceedings volume, based on selected symposium papers, which will serve as a basic reference on this subject.